SBIR Phase II: Laser Direct-Writing Technique to Produce Integrated Optical Amplifier/Splitter

This Small Business Innovation Research (SBIR)Phase II project will continue the successful
work from the Phase I project and develop integrated amplifier/splitters through laser
direct writing of wet-chemically derived, erbium-doped coatings. Precursor solutions will
be mixed on the molecular level to produce pure and homogeneous materials. Waveguide
structures will be written into the erbium-doped fluoride coatings with a laser, which
raises its index of refraction to confine light. The erbium-doped channel waveguides will
be pumped with a 980 nm source to amplify 1550 nm signals.
Markets in which integrated optical devices, such as amplified splitters, can be used
total several $100 million. This device will expedite bringing fiber the last mile because
it will replace the current serial arrangement of discrete splitters and amplifiers, which
is bulky and expensive due to the number of components and interconnects. The proposed
integration techniques will also enable optical integrated circuits and next-generation
computing.
Prototypes will be fabricated during Phase II. TPL has extensive experience in
wet-chemical processing and demonstrated ability to commercialize its technologies. The PI
is a pioneering researcher of laser-fired, sol-gel derived films. LightPath Technologies
will assist TPL with device and marketing development.